Survey of the Shallow Water Marine Cryptofauna of Guana Island, BVI

DEB-9972100
PI: Zimmerman

Institution: Los Angeles County Natural History Museum

The shallow water marine invertebrates around Guana Island (British Virgin Islands), and area of high marine biodiversity, will be sampled for two one-month periods during the summers of 1999 and 2000. Especially targeted will be the crustaceans, polychaete worms, echinoderms, and molluscs. Collecting will be conducted using a variety of techniques, including hand net collecting, scuba, traps, settling structures, diver operated box cores, and airlifts. The majoriyt of the collecting will be exploratory in nature, sampling from as many different habitats as possible. Quantitative sampling will be conducted at eight sites currently being used for fish surveys. This will include setting out colonization structures to be left for a period of one year. Some members of the six person scientific team will be dedicated to live sorting and photography while on the island. A proportion of the specimens will be alcohol preserved to facilitate DNA extraction. Specimen information including images and ecological observations will be posted on the World Wide Web through the Los Angeles County Natural History Museum. In addition to the web product, descriptions of new species and an identification manual to the common species will be produced.